Postdoctoral Research Associateships in Computer Science and Engineering

The proposed research is to continue and to expand computer simulations of new phenomena in strongly perturbed quantum systems. Program codes to obtain time-dependent quantum mechanical wave functions for one-electron atoms and negative ions in very intense and short-pulse radiative environments have been developed. These wave functions have led to new predictions and satisfactory semi- quantitative comparisons with experiments carried out in the last few years. The concept of these wave functions will be extended to two- electron systems in high-intensity laser fields. These calculations will be the first exact quantum calculations of that type which fully counts for all interactions (electron-atom, electron-field and electron-electron) for a quantum system. They will provide a novel opportunity for systematic tests of the range of validity of approximations involved in traditional multi-electron radiation theories.//